Support to Interagency Arctic Research Policy Committee Staff.

This Interagency Agreement supports activities of the Interagency Arctic Research Policy Committee (IARPC) for which NSF has lead agency role. These activities include editing and prepartion of the copy of the Spring and Fall 2003 issues of the Journal, Arctic REsearch of the United States. The Journal serves ans essential step in fulfilling the requirements of Public Law 98-373, the Arctic Research and Policy Act. It contains information on research activities of the Federal agencies involved in the Arctic and report and minutes of meetings fromthe Arctic Research Commission and IARPC. Under this agreement, CRREL also provides editorial support services for the U.S. Arctic Research Plan and the IARPC.